REU Site: Environmental Engineering Science

The award provides funding to Washington University at St. Louis, for a 5-year REU Site program in environmental engineering science under the direction of Dr. Brian A. Wrenn. This program will provide an opportunity for 10 outstanding undergraduate students from other institutions to spend 10 weeks at Washington University during the summer, where they will conduct independent research under the guidance of one or more faculty members.